National School Volunteer Project in Science, Mathematics and Technology

This project will test the feasibility of recruiting, training, an deploying a cadre of volunteers who are competent scientists and/or engineers and who will work in the schools as teacher aides. Five sites, all locations of existing Triangle Coalition collaboratives, will serve as the recruiting and training centers. Science teachers from cooperating schools will specify tasks for the volunteers and will assist in conducting the training workshops. For one academic year, the volunteers will work in the schools. During that year, data will be collected on the effectiveness of the service provided by the volunteers. The goal is to recruit a total of 25 volunteers (5 per site) who will contribute a total of 9000 hours of service (360 hours per volunteer). The project will be conducted under the general supervision of John Fowler of the National Science Teachers Association. Significant assistance in the recruiting and training procedures will be provided by the National School Volunteer Program.